Review of EarthScope Science Objectives and Implementation Planning

EAR-0126428
David Feary

An ad hoc committee under the auspices of the National Research Council (NAS) - Board on Earth Sciences and Resources (BESR) will be charged with the review of the science objectives and implementation planning of the three components of NSF's EarthScope initiative. They are: United States Seismic Array (USArray), the San Andreas Fault Observatory at Depth (SAFOD), and the Plate Boundary Observatory (PBO). EarthScope is an NSF-led initiative designed to apply modern observational, analytical, and telecommunications technologies to investigate the structure, dynamics and evolution of the North American continent, and the physical processes controlling earthquakes and volcanic eruptions. It is anticipated that the results of the EarthScope initiative will provide a foundation for fundamental and applied geoscience research throughout the United States.